Mechansisms Controlling Plant Nitrogen Isotope Composition

Evans 9723913 Anthropogenic activity is having a dramatic impact on ecosystem nitrogen dynamics. Nitrogen is the element that most often limits growth, and species-specific responses to changes in nitrogen dynamics can alter species composition and decrease biodiversity. Natural variation of stable isotopes of nitrogen ('5N; IN) can provide new insights into dynamics of plant nitrogen use. The forms of nitrogen absorbed by plants have very different isotopic compositions (FIN), so plant of N may be a powerful tool to quantify acquisition of nitrogen from different sources. A common assumption is that foliar oven depends solely on the own of the nitrogen source, but it is now apparent that variation in foliar 6~sN can also result from physiological processes within the plant. This study will provide a mechanistic understanding of the factors that control plant own and outlines a physiologically-based model that can be used to quantify absorption of nitrogen from different sources. The significance of the proposed research is that a mechanistic understanding of the factors controlling plant 6~sN in combination with a physiologicallybased model will provide a tool to quantify acquisition of nitrogen from different sources within the environment, enabling us to increase our fundamental understanding of plant nitrogen dynamics.